High Field NMR Study of Antitumor Active Platinum Complexes with Trans. Geometry

This research focuses on activation of the trans geometry in platinum antitumor complexes, first studying the reactions of trans- PtCl2(NH3)(quinoline) with various nucleobases and nucleotides. Platinum (IV) analogs will be prepared and a careful comparison of platinum (II) and platinum (IV) reactivity with oligonucleotides will be undertaken using two dimensional and multinuclear nuclear magnetic resonance. Dr. Roat will also spend a summer research period in the Netherlands at Leiden University's Gorlaeus laboratories to continue research collaboration with Jane Rudijik. She will be accompanied by a graduate student from Virginia Commonwealth University and an undergraduate from Washington College. Interactive activities include: teaching an undergraduate/graduate level course in Bioinorganic Chemistry; organizing seminars for undergraduates, targeting women and minorities, devoted to putting together competitive applications for undergraduate and graduate research and academic scholarships and fellowships; and implementing a summer research exchange between host and home institution students with Leiden University, the Netherlands where Dr. Roat has extensive collaborative research contacts.